Computer Controlled Instrumentation for an Undergraduate Signals and Systems Laboratory

The goal of this project is to improve the quality of the undergraduate curriculum by changing an existing undergraduate core course, signals and systems laboratory, into a computer- controlled instrument base laboratory course. This project will enable us to ensure that all of our graduates will have encountered modern CAD/CAM type equipment before their entry into the workplace. The contributions of the project are threefold: to provide state-of-the-art computer controlled instrumentation for each station within the laboratory: to increase the exposure of the individual student to such instrumentation by increasing the number of functioning stations, thereby limiting the number of students per bench (maximum of two); and to create expanded flexibility and capabilities via PC-based laboratory stations for utilization of CAD software for analysis and design. Major equipment purchases include equipping ten complete student stations with personal computers and compatible programmable instrumentation including digital oscilloscopes, waveform generators, power supplies, and pen plotters.